SRS/NSF/CPST/Professional Societies Workshops

This proposal is for the purpose of planning and carrying out a series of 5 workshops between SRS/NSF and scientific and technical professional societies. This activity had been conducted in the past as a way for the professional societies and NSF to use their data in complementary fashion. The purpose of the workshops is to continue to build these relationships.